TWC: Small: Collaborative: An Iterative Approach to Secure Computation

Secure multi-party computation (SMC) allows several mutually untrusting parties to perform joint computations while keeping their inputs private. This project develops new techniques for constructing two-party secure computation protocols with low communication overhead. Building on the PIs prior work for constructing special-purpose secure computation protocols for greedy algorithms, this project aims to develop new techniques that exploit the algorithmic structure of a function in order to develop more efficient secure computation protocols. Of particular interest in this project are linear algebraic tasks, graph matching algorithms, and problems from computational geometry. The project develops new methods to achieve security against covert adversaries for these problems.

The investigators broadly disseminate the outcomes of the research and software libraries in order to benefit both theoreticians and practitioners. The project includes various educational and outreach activities such as organizing workshops for high-school students. The project has created a wiki for cryptographic constructions and security notions associated with these constructions.